LSW Formation and Variability in Transport and Mixing of ISOW and DSOW in the Irminger Basin

Smethie

In collaboration with a previously funded program by Pickart (WHOI), the PIs will contribute
to the identification of the origin of Classical Labrador Sea Water (CLSW) in the Irminger
Basin, map the pathways of CLSW, Denmark Strait Overflow Water (DSOW), and
Iceland-Scotland Overflow Water (ISOW) IN THE Irminger Basin, estimate the rate of
DSOW flow to the Irminger Basin, and document variations of DSOW and ISOW in the
Irminger Basin and the source of these variations. They will use, primarily, CFC-11, -12,
and -113. They will perform inverse modeling to understand diapycnal mixing in the Deep
Western Boundary Current and controls on how the overflow water mixes with and entrains
surrounding waters.